Studies in Automatic Dynamic Load Balancing on Large Loosely-Coupled Multiprocessors

New load balancing algorithms for loosely-coupled multiprocessors are developed and their effectiveness is studied by a large number of experiments on real multiprocesor systems. The algorithms investigated support automatic dynamic load balancing. They aredynamic in the sense that the assignment of tasks to particular processors occurs at run- time and depends on the state of the system over the course of the computation. Furthermore, they are automatic - the run-time system completely determines task-to-processor assignments.